Research in Particle and Astroparticle Physics

9408716 Coyne Support is granted to faculty at the University of California at Santa Cruz for continued study of electron-positron interactions at the Stanford Linear Accelerator Center (SLAC). The research aims to determine parameters of the standard model of elementary particles. The method makes use of polarized electrons available only at the SLC colliding-beams complex at SLAC. The group also will apply to cosmic-ray detection methods used in particle- physics experiments. The group participates in the design and construction of MILAGRO, a new air-shower detector that makes use of Cerenkov radiation produced by shower particles in a large pool of water. With it they will determine properties of cosmic rays at currently inaccessible energies. ***